Workshop on Logic and Computational Complexity: Bloomington, Indiana: October 14-16, 1994

9415551 Leivant This award supports an international workshop on Logic and Computational Complexity on the Bloomington campus of Indiana University, from Friday, October 14, through Sunday, October 16, 1994. In spite of a high degree of conceptual unity, the interdisciplinary relations between logic and computational complexity have not been as yet the focal point of any scientific meeting. Instead, they have appeared as subareas in various meetings on Structural Computational complexity, Logic in Computer Science, Feasible Mathematics, Database Theory, Programming Language Theory, Mathematical Logic, Proof Theory, and Category Theory. The absence of meetings has hampered the area's development at the conceptual as well as the personal levels. Important connections between the various approaches have rarely come to the surface, and people who have joined this research community from different background have had only fragmented and incomplete opportunities to meet and discuss their common interests. The proposed workshop would, for the first time, bring together this research community, with the potential of infusing even greater vigor into its research activity and its practical as well as theoretical applications. ***